Learning Equilibrium Behavior

A central question in economics is how markets coordinate the behavior of anonymous decision makers in a many person decentralized economy. Economic theory has progressed using the equilibrium method. For abstract games, an equilibrium is defined as an assignment to each player of a strategy that is best for him when the others use the strategies assigned to them. However, the relevance of this abstract mutual consistency requirement for economic modeling is an open question. This project will focus on two related problems. First, the mutual consistency requirement of an equilibrium assignment is not an implication of individual rationality, because individual rationality does not restrict the subjective beliefs a player may hold. Rather, individual rationality means internal consistency and internally consistent beliefs and actions of different players may not be mutually consistent. Second there is often more than one equilibrium assignment. Consequently, understanding the origin of mutually consistent behavior is an essential complement to the theory of equilibrium points. This project will utilize experimental methods in order to determine how people actually use the strategic details of their environment. The ultimate goal is to develop an empirical foundation for a convincing explanation of the origin of mutually consistent behavior in observable games, that is, how people learn equilibrium behavior.